Lesson Study for Successful Science Teaching: Creating Science-specific Accommodations for Students with Learning Disabilities?

This proposal describes a research project to investigate the extent to which a lesson study professional development program for both special and general educators will help improve science teaching to grades 3-6 special education students who are in inclusion classrooms. The study would look for evidence of changes in classroom practice and in the students' participation and achievement. The research population includes 48 special and general education teachers from three urban schools in the treatment group and 30 teachers in the comparison group. The authors hypothesize that pairing both teacher populations in lesson study will help create more effective accommodations for students with mild learning disabilities.